Effects of Intrinsic and Extrinsic Motivators on Worker Performance: A Longitudinal Field Experiment

The purpose of this award is to study the effects of intrinsic motivation (e.g. goal setting with performance feedback and participation) and extrinsic motivation (e.g. bonuses) on performance. The study involves a longitudinal field experiment. It will span three years and will be conducted within a multi-site social services agency. The study uses a replicated time series design and involves an extensive data collection effort of baseline measures postintervention and follow up data from agency records, questionnaire responses, and indepth interviews. The results will have important implications for management practice affecting the design of performance evaluation and reward systems as well as for the validation of certain issues in motivation theory. This is an ambitious field experiment involving a study of central theoretical issues on the effect of intrinsic and extrinsic motivators on performance. It is also of central interest to practitioners concerned with the design of performance evaluation and reward systems in organizations. Specifically, the purposes of the study are to determine (1) whether an intrinsic motivation system improves the performance and attitudes of employees; (2) whether the addition of extrinsic rewards to the intrinsic system results in gains or losses in performance; and (3) whether these gains or losses are mediated by adjustments in the intrinsic system. Most prior work on this issue has been done in the laboratory or over short time horizons. In addition to the validation and extension of theory and the implication for management practice the research will also contribute to the methodology of field experimentation in live organizations which is still in early stages of formalization.